Acquisition of a Scanning Confocal Microscope

The proposal is for the acquisition of a scanning confocal microscope (SCM). Various new software applications allow image planes to be individually collected, stored and recombined to produce three-dimensional views of structures. This ability to spatially resolve structures within a sample is unique to SCMs and is one of the major advantages that they offer over traditional methods of data acquisition (standard immunofluorescence, transmission and scanning electron microscopy, DIC microscopy, etc.). The instrument will be operated and maintained at the Center for Advanced Ultrastructural Research the SCM and will be easily accessible to researchers at the University of Georgia and the Medical College of Georgia, Augusta. These researchers represent a variety of disciplines including agronomy, biochemistry, botany, chemistry, entomology, genetics, microbiology, physiology, plant pathology, and zoology, and the projects cover a broad range of cytological investigations in furgal, plant, and mammalian cells.